Topology of Singular Algebraic Varieties

Abstract

Award: DMS-0705050
Principal Investigator: Anatoly S. Libgober

The project deals with the study of topological invariants for
singular algebraic varieties with many ideas motivated by
physics. One of its goals is to develop new invariants for
singular spaces extending the theory of elliptic genus of
varieties with mild singularities and orbifolds which was
presented in joint works with Lev Borisov earlier. This will
yields an extension of the previous contributions by many authors
on vertex operator algebras associated to manifolds or orbifolds
and application of these invariants to geometric problems. PI
plans to develop further generalizations of elliptic genus
detecting the torsion in the cobordisms of special unitary
complex manifolds as well as use this invariant in classification
and surgery problems of singular spaces. The principal
investigator will investigate the possibility that the elliptic
genus plays a role in singularity theory beyond classical
applications in Landau-Ginzburg models associated with weighted
homogeneous polynomials. In particular it is planned to consider
the extensions of elliptic genus of Landau-Ginzburg models in
connection with the Arnold-Steenbrink spectrum of isolated
singularities. In another direction, PI plans to study the
homotopy groups of non-simply connected quasiprojective
varieties. In particular the study of characteristic varieties
associated with homotopy groups controlling among other things
the cohomology of local systems will be continued. A.Libgober
will focus on properties of the Hodge decomposition of the latter
and will study the fundamental problem of realization of these
invariants, i.e. the existence of quasiprojectve varieties with
given characteristic varieties. As part of this work, PI will
investigate the restrictions on the dimensions of characteristic
varieties in the case of plane reducible curves generalizing
results in the case of arrangements of lines in complex
projective plane.

In general terms the proposal aims to develop new approaches to
the study of geometry of spaces appearing in a variety of
problems in mathematics and such aspects of theoretical physics
as string theory. A new type of data, called elliptic genus,
reflecting geometry and topology of these spaces which appeared
naturally in physics will be investigated from a mathematical
perspective and applied to a wide range of problems in geometry,
topology and singularity theory. It is planned to study further
generalizations of elliptic genus which should have applications
to fundamental problems of physics. The realization of presence
of infinite dimensional aspects in geometric issues, on which our
work depends in an essential way, is a novel feature which
emerged in the last 20 years in mathematics and physics. It is
planned to widely disseminate such new viewpoints gaining
strength in contemporary mathematics and physics.